New PDE Based Models and Numerical Techniques in Level Set Surface Processing, Imaging Science and Materials Science

Stanley J. Osher and Luminita A. Vese
The investigators together with junior faculty, postdoctoral
fellows, and students develop novel and efficient computational
techniques for partial differential equations of fourth order
arising in imaging science, including medical imaging, image
processing, computer vision, and graphics, as well as material
science. They begin with analysis done on their previous TV model
by Yves Meyer. This gives a unique blend of nonlinear partial
differential equation and functional analysis as well as new and
very useful models for image decomposition. This leads the
investigators to the analysis of more general fourth order
equations used in imaging science, with geometric applications
and interpretations, as well as new efficient computational and
numerical methods to approximate these and other related partial
differential equations. Problems considered include image
decomposition into cartoon plus texture, Wulff evolution of
shapes in crystal growth, image disocclusion by the Euler
elastica model, image restoration via geometry of level sets, as
well as reconstruction of surfaces from unorganized data points
(such as LIDAR, LADAR, 3D cloud or geoscience data) in the form
of patches belonging to the same unknown surface.
This investigation dramatically advances the
state-of-the-art in material science (e.g., microchip design),
image analysis, computer vision, and graphics. These fields are
of great strategic value in the US information technology
industry, in nanoscience, in homeland security, and in medical
imaging. The level set method and applications, developed by the
investigators and collaborators, has impacted numerous areas of
technology -- see, e.g., the Google website for close to 5,000
hits on "Level Set Methods" with a spectacular range of
applications from Hollywood graphics to underwater explosions to
control of passenger aircraft to developing new microchip designs
and beyond. The investigators' new models reduce the burden of
laborious human operations for the processing of large-scale data
sets, enhance the efficiency of domain scientists as well as
ordinary users, facilitate modeling and rendering tasks, and
streamline the pipeline of information and materials processing.